Mass Transport in Water Waves Over Impermeable and PermeableBed

Mass transport due to the action of water waves near the bottom in shallow water is to be investigated both theoretically and experimentally. Both an impermeable as well as a porous bed at the bottom are to be used in the experimental simulations, and mass transport velocities will be determined using Laser-Doppler Anemometry. The experiments will deal with flat surfaces. The theoretical modeling portion of the research will generalize the conditions to include the effects of three-dimensionality, bottom topography, and turbulence.